Investigation of Nuclear Structure with Intermediate Energy-Electrons and Photons

Research principally in electromagnetic nuclear physics is planned. Most of the experimental effort will be directed towards CEBAF. A photon tagger will be developed for use in approved CEBAF experiments relating to structure of the nucleon anomalous magnetic moment, shadowing phenomena in total photo-absorption, and vector meson decay of nucleon resonances. Research on low energy nuclear structure using magnetic electron scattering will be carried out at the Darmstadt microtron in Germany. Work will continue on development of a new neutral meson spectrometer for use in pion charge exchange and other pion reactions at LAMPF and elsewhere.